Workshop on Quantum Computing, Information, Science, and Engineering

Quantum computing and quantum information science and engineering is one of the most critical and emerging worldwide technological fields. The importance of both the quantum research endeavors and the equally important training of a quantum-ready workforce were stressed in the National Quantum Initiative Act of 2019. This workshop brings together researchers and administrators from the Established Program to Stimulate Competitive Research (EPSCoR) states and territories to identify how their institutions can better contribute to field of quantum computing and quantum information science and engineering. The workshop involves attendees learning about the current state of select quantum computing and quantum information science and engineering topics. The workshop has two main Intellectual Merit goals. First, it seeks to provide a platform for collaborative research. Also, the workshop aims to act as a litmus test to determine the state of affairs related to quantum computing and quantum information science and engineering within the EPSCoR states and jurisdictions.

The broader impact of this workshop is to facilitate academic institutions to better understand why they should and examples of how they might contribute to the education of their undergraduate and graduate students for entry into the quantum ready workforce. This workshop will directly impact over 50 attendees. By learning about other quantum researchers and institutions, it is expected that organically new and stronger collaborations will emerge to realize the vision of the National Quantum Initiative Act and the vision of the Established Program to Stimulate Competitive Research. The tangible outcome of the workshop in the form of a publicly available report will on its own have potential to have an enormous impact not only on the current quantum computing and quantum information science and engineering researchers but also on the next generation of researchers that look for guidance and reassurances.